XII International Conference on Physics in Collision; Boulder, Colorado; June 10-12, 1991

This proposal is for partial support of the twelfth conference in a series whose purpose is a review of the latest experimental measurements in elementary particle physics at the highest energies. The conference format is a single plenary session of 40 minute review talks, and has particular pedagogic value for student and junior postdoctoral attendees as well as others. New results on electron-antielectron collisions from SLAC, LEP and Cornell should be reviewed. Also, considerable interest will focus on new experimental results from the proton-antiproton colliders at Fermilab and CERN and from new electron proton collider at HERA. Data from the other experiments in which various projectile collisions with a variety of nuclear targets have recently been completed at Fermilab are likely to be available in preliminary form.